The Geochemistry of Sulfur during Serpentinization of Oceanic Ultramafic Rocks

9416007 Alt This project will examine the role of sulfur in alteration of ocean ultramafic rocks, in order to constrain the conditions for formation of pure metals, oxides and sulfides, which are widely found in continental serpentinites. ***